Acquisition of an X-ray Diffractometer

This award provides one-half the funds needed for the acquisition of an X-ray diffractometer system that will be installed and operated in the Department of Marine Geology and Geophysics at the Rosenstiel School of Marine and Atmospheric Sciences in the University of Miami. The University of Miami is committed to providing the remaining funds required for the purchase. A modern X-ray diffractometer system is needed at this institution as an integral part of many of its research projects in carbonate sedimentation, analysis of samples from the Ocean Drilling Program, hydrology, paleoclimatology, and paleontology.